STTR Phase I: Conformal sensor for radiation monitoring using organic semiconductors and conductors

The broader impact/commercial potential of this Small Business Technology Transfer Research (STTR) Phase I project is an organic conductor and semiconductor platform to improve radiation dosimetry during radiation sessions. The novel approach poses manufacturing, supply chain, and materials alternatives to currently available radiation detection and monitoring technologies. Radiation therapy is administered at approximately 5,000 treatment centers in the U.S. with the total number of radiation therapy sessions exceeding 60M per year. The advances can also be applied in other sectors including nuclear, aerospace and defense sectors offering lightweight, flexible, and cost-efficient radiation monitoring options.

This Small Business Technology Transfer Research (STTR) Phase I project will advance the field of radiation detection by introducing a new type of device integrating organic semiconductor-based detectors and organic cabling/wiring with tissue equivalent properties. The research will optimize the material composition, printing techniques, and sensor architecture to maximize sensitivity and reliability. This work bridges the gap between organic electronics and radiation physics, fostering innovation in printed flexible sensors to provide a new product technology. The Phase 1 scope of work includes fabrication of completely organic systems including cabling and integration of the power and control unit, followed by characterization and analysis of the radiation response for performance needed to demonstrate feasibility.